Proposal to Continue an REU Site in Computer And InformationScience And Engineering

This is a proposal to establish an NSF-REU Site in Computer Science at Caltech during 1988. This program would focus upon advanced topics in computation. This program would involve four (4) undergraduates from other universities and four (4) Caltech students. The program would be administered like that which took place in 1987 at Caltech.